Mathematical Sciences: The Geometry of Highly Nonlinear Control Systems

This project concerns the study of local controllability for nonlinear systems of differential equations. The main goal is to find computable high order conditions for local controllability of analytic systems. Geometric and algebraic techniques provide the basic approach for this study. A successful outcome of the project would lead toward designing automatic stabilizing feedback systems.